Support of Conference on Oxygen Binding and Sensing Heme Proteins, September 27, 1998 to October 2, 1998 in Pacific Grove, CA

9803260 Vinogradov This conference on Oxygen Binding and Sensing Heme Proteins will bring together researchers from many specialized areas related to the structure and function of heme proteins and enzymes. A forum for newly independent investigators and postdoctoral fellows will be provided at a poster session. Women and minority scientists are represented in lectures and as discussion leaders. The biotechnology industry will be represented as well. The venue is the Asilomar Conference Center, from 9/27/98-10/2/98.

This conference will provide a forum for the latest research results in heme containing proteins and enzymes.